U.S.-Japan Joint Seminar: Fundamental Aspects of the Physicsof the Lightning Discharge/November 1991/Toyota City, Japan

This award will support the participation of five US scientists in a joint US-Japan seminar on "Fundamental Aspects of the Physics of the Lightning Discharge". Research in this area is important particularly because of the adverse effects of lightning on the general population. Much has been learned in recent years about lightning discharge, particularly on the understanding of the generation mechanism of lightning, the discharge process, the control and prediction of lightning and protection for lightning hazards. Scientists at NASA have now perfected the technique of triggering lightning using small rockets trailing copper wire and the Japanese have been experimenting with similar techniques. Further research is still needed and any new understandings will have benefits for the whole of society. Japan and the US are two of the leading countries in lightning research and therefore a joint seminar in this area would be both scientifically productive and timely. The seminar will be held November 17 - 21 in Toyota City, Japan. The co-organizers are Professor E Philip Krider, Director of the Institute of Atmospheric Physics, University of Arizona, and Dr. Minoru Nakano, Department of Information and Computer Engineering, Toyota College of Technology, Toyota, Japan. Specific topics to be discussed include (1) the mechanism of lightning discharge; (2) the similarities and differences between natural lightning, Triggered lightning and long gap discharges; (3) techniques to trigger lightning by rocket; and (4) the development of novel techniques for the prediction and protection of lightning. There has been little exchange or collaboration between the US and Japan in this area in the past and this seminar should therefore be a step towards bridging the gap between the two communities. It is probable that some collaborative projects and exchanges of scientists will result.